Enhancement of a Flexible Manufacturing System.

This project incorporates a programmable robot into this institution's flexible manufacturing laboratory. The robot, a GMF S100, permits curriculum enhancements in both the lower an upper divisions. In the lower division, courses on contemporary manufacturing operations include topics requiring entry level programming of the robot. Upper division courses in computer aided manufacturing and the senior design course expose student to advance device programming and operation. The upper division students utilize the programmable robot to produce products. This award is being matched by an equal sum from the grantee.